Ruidoso Municipal School District Connection to The Internet

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect five schools and the school district's administration building to the Internet through a bi-directional fiber optic CATV cable plant using current technology radio frequency cable modems.